Mathematical Sciences Computing Research Environments

The Department of Engineering Sciences and Applied Mathematics of Northwestern University will purchase workstations which will be dedicated to support research in the mathematical sciences. The equipment will be used for several research projects concerning the dynamics of nonlinear partial differential equations and applications, including in particular: . Advection by a dipolar vortex couple in the presence of small diffusion. . The numerical computation of pulse propagation in nonlinear optical fibers. . The influence of noise and quenched disorder on the growth of spatial structures.